Spectral Theory and Geometric Quantization

Proposal DMS-0401064

Title: Spectral theory and geometric quantization
P.I.: Alejandro Uribe (University of Michigan- Ann Arbor)

ABSTRACT

A variety of spectral, pseudospectral and inverse spectral problems
will be studied. These include: (1) The estimation of the spectra and
pseudospectra of non self-adjoint differential, Toeplitz and
pseudodifferential operators in the semiclassical regime, (2) The study
of the spectral properties of elliptic operators on orbifolds, in
particular establishing a semiclassical trace formula, (3) Inverse
problems for the Laplacian, where the data are a combination of
spectral and initial data, and (4) Extending the quantization of Kahler
manifolds to symplectic orbifolds. The methods employed will be
primarily microlocal, including the calculus of h-pseudodifferential
operators and Fourier integral operators both of complex phase and of
Hermite types.

Spectral and pseudospectral problems arise in enormously diverse
contexts, from applied problems in oscillations and diffusions to
problems in differential geometry. Yet there are many fundamental
questions in these areas that remain poorly understood. A common theme
of the topics in this proposal is that they are amenable to study
through the various mathematical realizations of the wave-particle
duality, more specifically semi-classical methods. This approach
establishes a connection between analytical and geometrical objects,
which should be very fruitful for the problems proposed here.